Dissertation Research: A Phylogenetic Analysis of Desmognathine Salamanders Utilizing Ribosomal DNA Restriction Site Maps

Morphological data have not provided a clear picture of the relationships among species of the Desmognathinae a monophyletic subfamily of lungless salamanders, family Plethodontidae. Preliminary data on rDNA restriction site variation and published data from other vertebrate groups indicate that rDNA restriction site mapping can generate valuable new phylogenetic information for desmognathines. Use of the sister group relationship between the Desmognathinae and the Plethodontinae will allow application of the outgroup criterion for ascertaining primitive versus derived restriction sites, and a phylogenetic hypothesis will be formulated based ont he most parsimonious explanation of restriction site evolution. Phylogenetic information from rDNA can provide the basis for the testing of pervious hypotheses of life history evolution in desmognathines and can be used to determine the ancestral life history for desmognathines, an important consideration in testing competing hypotheses on the origin of lunglessness in the Plethodontidae. This study is the first investigation of the entire rDNA array in a monophyletic group of salamanders and will increase knowledge of rDNA evolution in vertebrates.